CSR-DMSS,SM: Cooperative Activity Analysis in Wireless Smart-Camera Networks (Wi-SCaNs)

ABSTRACT
With the advances in the hardware technology and ever-decreasing cost of imaging circuitry, cameras have become
ubiquitous in our lives. The large amounts of video data generated by multiple cameras necessitate automatic
analysis of activities from video. With the introduction of smart cameras, it has now become viable to install
many spatially-distributed cameras interconnected by wireless links. A smart camera is a stand-alone unit that
not only captures images, but also includes a processor, memory and communication interface. This project
takes a holistic view of the problems that need to be solved to build scalable, battery-powered wireless smart-
camera networks (Wi-SCaNs). It focuses on providing a unifying solution to perform tasks distributively, and
communicate in a P2P fashion over wireless links while making e±cient use of limited resources, such as energy
and bandwidth. This research explicitly considers the challenges of wireless channels, and addresses the issues
of scarce resources, P2P protocol design and channel usage priorities simultaneously. The expected outcomes of
this project include light-weight vision algorithms that are portable to embedded smart cameras, characterization
of the energy-bandwidth-delay tradeo®s in Wi-SCaNs, e±cient resource allocation strategies, and P2P wireless
communication protocols that leverage the knowledge of the wireless channel conditions. The outcomes will have
an important positive impact, because they will fundamentally advance the automatic activity analysis solutions
by providing installation of any number of cameras anywhere, and will ¯nd wide-ranging applications including
surveillance in military, commercial or public scenarios, elderly care and wildlife monitoring.
1